FRG: Collaborative Research: Focused Research on Wavelets, Frames, and Operator Theory

Fundamental problems are addressed in wavelet theory, non-uniform
sampling, frames, and the theory of spectral-tile duality. These
problems are inextricably interwoven by concept and
technique. Operator theory provides the major unifying framework,
combined with an integration of ideas from a diverse spectrum of
mathematics including classical Fourier analysis, noncommutative
harmonic analysis, representation theory, operator algebras,
approximation theory, and signal processing. For example, the
construction, implementation, and ensuing theory of single dyadic
orthonormal wavelets in Euclidean space requires significant input
from all of these disciplines as well as deep spectral-tile
results.

There is intrinsic mathematical importance in the aforementioned
problems, and the solutions to be formulated have broad and
creative implications, both for mathematics and for applications
in engineering and physics. The topics of this project have
direct bearing on fast acquisition and motion problems in MRI,
as well as in formulating algorithms for compression and noise
reduction by means of proper cochlear modelling. There are further
applications in quantum computing and image processing, and the
development of non-uniform sampling strategies by this project
play a role in state of the art A/D conversion methods used in
multifunction RF systems. These interdisciplinary applications
depending on modern mathematical analysis have educational
implications in terms of cross-fertilization of ideas and research
opportunities for graduate students.